PFI-TT: Solar Evaporator-Based High-Efficiency Water Desalination System

The broader impact/commercial potential of this Partnerships for Innovation - Technology Translation (PFI-TT) project is to provide a low-cost, low-energy, off-grid system to obtain freshwater. Water security has been considered the top global risk, as a 40% shortfall is expected between forecasted demand and the available supply of water by 2030. Energy-intensive processing and insufficient clean water productivity of current technologies have become bottlenecks for cost-effective desalination water supply. The renewable energy-driven water utility market is growing, with key stakeholders in developed nations including agriculture and municipal water utility providers. The solar-driven water desalination system in this project is particularly suited for individual installations, underserved populations, and disaster scenarios, all of which are underserved by current desalination techniques. This project advances a process to convert seawater and other brackish water sources into freshwater via a versatile, environmentally friendly, and economically viable desalination system to alleviate water scarcity.

The proposed project identifies a reliable, robust, and cost-effective solution for a solar-driven water desalination and treatment system. The project will optimize the advanced thermal and mechanical properties of a scaled Cu/CuO foam-based all-in-one solar evaporator, investigate a cost-effective strategy for efficient water desalination, and integrate a solar energy system with water desalination system by supplying the preheated sea or brackish water through existing solar-related infrastructures. A novel design of a planar interconnected open-pore foam-based evaporator will be demonstrated. The spatial extension of a planar structure is featured with an addition of a third vertical dimension to improve the evaporation performance. When compared to a similar interfacial structure, no extra photothermal materials are required for this design, and the simple structure is favorable for large-scale applications. The goal of this project is to develop a highly-efficient (>4.5 kg/m2 h), cost-effective (< $40/m2) desalination system for freshwater supply driven by direct solar irradiation, enabled by novel functional materials and structures.